Research Experiences for Undergraduates

This Research Experience for Undergraduates (REU) site project is in the field of chemistry. For a three-year period beginning April 1989, eight (8) undergraduate students will spend ten (10) weeks engaged in basic research in chemistry and, in one case, in a joint chemistry-physics project under the direction of nine faculty members from the chemistry department and one from physics. The program has two main objectives: (a) to develop basic research skills, and (b) to strengthen interest in research and graduate studies. Each student will be supervised by a faculty mentor and will work on an appropriate research project in that faculty member's laboratory, under the direct supervision of graduate students and postdoctoral fellows. In order to encourage student-student interactions, students will be housed together in University dormitories and will be offered formal and informal group activities. All students will take an "Introduction to Research" course, and will present the results of their research at a meeting held at the end of each annual 10-week session.